IRNC: Testbed: COSMOS Interconnecting Continents (COSMIC)

The project enables the use of unique programmable wireless, optical, and edge-cloud network testbed infrastructure for international collaborative experiments. It builds on the interfaces of the PAWR COSMOS (NYC) and ORBIT (NJ) testbeds with the PEERING (US/International) and FABRIC (US) testbeds, and adds connections to international testbeds, including CPQD (Brazil), Kyutech/StarBED (Japan), OneLab/NITOS (EU/Greece), and CONNECT (Ireland). To support cross-layered international experiments, unique capabilities are developed, including optical and BGP extensions to the Mininet network emulator, and PEERING testbed tools for cross-layer BGP functions and controlled public Internet experimentation.

The project creates a powerful international experimental platform for networking research from applications down to the optical and radio physical layers. A few distinct example experiments that demonstrate various capabilities and motivate further experimentation include: (i) Artificial Intelligence for multi-layer Quality of Service over disaggregated infrastructure during remote scientific experimentation; (ii) cloud processing of latency- and capacity-sensitive mobile applications across network domains and testbeds; and (iii) interdomain routing, data security, and privacy across national boundaries.

A strong outreach component aiming at broadening participation in computing involves local Harlem middle and high school teachers in research and in development of educational components. Finally, the development of emulation-based sandbox capabilities for international experiments promises to make such large-scale experiments more accessible to a wide range of researchers. Therefore, and due to the availability of a unique international infrastructure, the project has the potential to support experimentation that enhances the performance of future networks and helps bridge the digital divide.